ITR: Learning-Centered Design Methodology: Meeting the Nation's Need for Computational Tools for K-12 Science Education (Engineering Scaffolded Work Environments)

EIA-0085946
Soloway, Elliot
University of Michigan

Title: Information Technology Research: Learning-Centered Design Methodolodgy: Meeting the Nation's Need for Computational Tools for K-12 Science Education (Engineering Scaffolded Work Environments)

Learning while working in the knowledge-work professions can be supported
by appropriately-designed "scaffolded work environments (SWEets)." Several
researchers have assembled a unique team of 10 senior researchers from four
major universities to develop a principled engineering process for
constructing SWEets. The work will be based in the knowledge work context
of "science inquiry" using an engineering process to construct SWEets for
fourth through eleventh graders learning science via scientific
investigations in Detroit and Chicago classrooms. The results of the
proposed research will be explicit guidelines on how to build effective,
computationally-based work environments that scaffold and support
individuals engaged in knowledge work. The aim of this effort is to
transform what presently appears to be the art into a principled, software
engineering approach.